Industry/University Cooperative Research Center for SoftwareEngineering

This project is initiating an Industry/University Cooperative Research Center for Software Engineering at the University of Florida and Purdu University as a consortium. The initial research program for the Center will address: (1) front-end languages for requirements definition, specification, and software design; (2) intelligent programming environment; (3) software parts technology; (4) an empirical basis for cost-effective; (5) large-scale software cost estimation; (6) efficient implemenation strategies in team-oriented software development; (7) principles of software engineering for adaptability; (8) environment for developing reliable ADA programs; (9) graphics for software engineering.